SBIR Phase II: Portable NO2 Monitor Based on Photoacoustic Detection

*** 9800954 Micheels This Small Business Innovation Research (SBIR) Phase II project will develop a field portable prototype nitrogen dioxide gas monitor based on photoacoustic detection. Phase I produced a photoacoustic gas monitor design that will be refined and optimized in a prototype nitrogen dioxide analyzer with improved detection sensitivity and calibration stability integrated into a field portable package. The portable nitrogen dioxide monitor will have a detection range of 25 ppb - 50 ppm with a response time under 30 seconds. The instrument is expected to have cost and portability advantages relative to chemiluminescence-based monitors, greater detection sensitivity relative to the electrochemical monitors, and greater selectivity relative to both of these analyzer technologies. The portable photoacoustic nitrogen dioxide monitor is expected to find commercial applications in several areas including industrial hygiene monitoring in leaks and emissions from chemical plants and fossil fuel combustion in confined spaces; air quality monitoring in urban areas; and contamination monitoring in nitrogen oxide inhaled for medical treatments. ***